Technical Services for the RV WEATHERBIRD II

9700136 Hansell This award to Bermuda Biological Station for Research provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Weatherbird II, a research vessel operated by BBSR as part of the University National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded ocean researchers conduct studies in the North Atlantic Ocean in 1997, and will emphasize studies of oceanography and atmospheric measurements at stations providing time series data in the Western North Atlantic Ocean near Bermuda. ***